A Program of Research in Atomic and Molecular Physics and Related Areas

A broad program of research in atomic and molecular physics and chemistry will continue in seven inter-related areas: (1) Fundamental and precision measurements, using the latest advances in atomic metrology coupled with new developments in lasers. (2) Atom-single photon interactions, using trapped localized atoms and a variety of electromagnetic fields. (3) Dynamics of atoms and their interaction with static fields, including both theoretical and experimental studies of atomic structure. (4) Atom-electron, atom-atom, and atom-atom-photon interactions, studying the properties of atomic collisions and energy transfer over a broad range of temperature. (5) Simple molecular systems, including studies of excitation and breakup of such systems. (6) More complex molecules and clusters, including studies of various bonding mechanisms and the properties of unusual aggregates of atoms. (7) Technology development, principally the development of more precise control over electromagnetic radiation and of more precisely localized ultra-low temperature atomic traps. Each research topic contains both theoretical and experimental elements.